NineOneOne: Exploratory Research on Recognizing Non-English Speech for Emergency Triage in Disaster Response

This exploratory research seeks to demonstrate that new approaches to
Automatic Speech Recognition (ASR) and Machine Translation (MT) permit
automatic, real-time translation well enough for emergency triage. In
any major disaster, such as a hurricane, there will be a huge number
of 9-1-1 emergency calls in a short period of time; many will be in
languages other than English. Even in the best of times, there is a
chronic shortage of translation for triage of non-English calls at
many U.S. 9-1-1 centers.

For emergency triage, full recognition and translation are
unnecessary; only the type of emergency and relevant details, such as
location, need be recognized. Nevertheless, new advanced ASR methods
are needed to handle the difficult characteristics of non-English
9-1-1 calls, which contain emotionally-distressed speech in noisy
environments and may include English phrases mixed in with the other
language. For ASR, the exploratory system uses multilingual acoustic
models enhanced by articulatory features, and multilingual grammars
combined with n-gram language models, to recognize speech. As for MT,
the exploratory system only classifies the ASR outputs into ``Domain
Actions'', categories relevant to triage such as ``Request-Ambulance''
or ``Report-Flooding''. The exploratory system works with Spanish,
but the approaches used are applicable to any language, and
transferable to other task domains.

Demonstrating the feasibility of speech translation technology for
serving 9-1-1 call centers should enable follow-on projects to better
serve all non-English speakers during major disasters. We expect to
make the resulting transcribed and annotated speech corpus available
for other researchers.